NSF Minority Graduate Student Travel Award

Abstract

This action funds a Minority Graduate Student Travel Award for a visit during June, 2000 to a potential host laboratory in Germany by a graduate student who is interested in an academic career in microbiology and bioremediation. He will apply for an NSF Minority Postdoctoral Research Fellowship in December, 2000.